High Resolution Paleoceanography and Precise Dating of Glaciation in the Norwegian Channel and the North Sea

It will be determined whether the central North sea was glaciated and the rate and pattern of retreat of the Scandinavian ice sheet form the northern North Sea will be determined by dating the first glacial marine sediments deposited upon submarine tills in a series of in situ quality geotechnical bore holes. High resolution isotoped and faunal records will be developed from rapidly deposited postglacial sediments to monitor changes in meridional circulation and melt.water discharge at the centruy time scale. These studies will allow the evaluation of the relationship between glacier melting and changes in meridional circulation with unprecedented resolution and sensitivity.